A Generalized Absolute Stability Approach to Dealing with Saturation Nonlinearities: Analysis, Design and Applications to Magnetic Bearing Systems

Saturation nonlinearities are ubiquitous in engineering systems. In control
systems, every physical actuator is subject to maximum and minimum saturation
limits. In between these maximum and minimum limits, the input-output
characteristic of a physical actuator is often neither precisely linear nor
exactly known. Thus, in the analysis and design of many high performance
control systems, it is inadequate to model the actuator characteristic by a
standard saturation function. A straightforward approach to accounting for
the nonlinearities and uncertainties in the actuator characteristic is to
formulate the analysis and control design problem as the classical absolute
stability problem, where the actuator characteristic is assumed to be within
a linear sector. Such an approach to dealing with actuator nonlinearities
leads to severe conservativeness as the two straight lines, the boundaries of
a linear sector, cannot tightly bound the actuator characteristic.

The proposed research will develop a generalized absolute stability approach
to the analysis and control design of linear systems in the presence of
actuator nonlinearities. In comparison with the classical absolute stability
theory, the main innovation of this proposed approach is that it allows the
actuator nonlinearities to reside in between two nonlinear curves, rather
than two straight lines. The initial investigation by the PIs has shown that
the proposed approach drastically improves the results that can be obtained
by the classical absolute stability theory. The proposed research is expected
to lead to a set of powerful tools for various aspects of analysis and control
design, including the assessment of closed-loop performance under a given
feedback law and the design of feedback laws for stabilization, disturbance
rejection and output regulation. An integrated part of the project is to
experimentally verify the obtained theoretical results on some magnetic
bearing/suspension systems in our laboratory.

The proposed research will have a strong societal impact by advancing
magnetically suspended flywheel energy storage technology and by providing
efficient control design for magnetically suspended artificial heart pumps.
Other broader impacts of this research include the development of closer
interaction among the control theory, the magnetic bearings, and the medical
science research communities and curriculum enhancement at the graduate and
undergraduate levels.